Workshop on Mimetic Discretizations of Continuum Mechanics

ABSTRACT
0228920
Stanley Steinberg
U of New Mexico

We propose to organize a workshop: Mimetic Methods for Discretizing Continuum Problems.
There are several di.erent research groups and individual researchers that have rather
recently realized that they working on discretization methods that have many common features
that we refer here to as mimetic. This workshop will be the .rst organized to bring
this group of people together for the first time.
There are many powerful methods for discretizing problem in continuum mechanics:
finite element, di.erence and volume methods;sp ectral methods;along with various generalizations
and combinations of these. Typically, these methods start with a continuummechanics
problem described in terms of partial-differential, ordinary-differential, integral,
and algebraic equation and then discretize this description of the problem. Some methods
may instead start with an integral description in terms of conservation laws or start with
the problem described in terms of differential forms.